Cache Architectures for Large Shared Memory Multiprocessors

Bhuyan This project addresses the problem of designing coherent caches for scalable multiprocessors with shared address spaces. Maintaining cache coherence in large-scale systems is time consuming due to the lack of sufficient broadcasting capacity in the interconnection networks. A dynamic cache coherence protocol is being designed and evaluated to reduce the cache coherence overheads in large systems. This protocol limits invalidation or update traffic to a subtree of the interconnection network. The first phase of the project consists of embedding rooted trees into various networks, and studying the hardware and timing complexities of directories using the embeddings. In a second phase, issues such as fault tolerance adaptive routing, and task mapping are being addressed. The research makes use of analytic techniques and execution driven simulation.